Special Projects: Support for the Core Research Activities of the Computer Science and Telecommunications Board

EIA 0091076
National Academy of Sciences
Marjorie S. Blumenthal

Title: Special Projects: Support for the Core Research Activities of the Computer Science and Telecommunications Board

This projects requests support for the core activities of the Computer Science and Telecommunications Board. The Board conducts a variety of activities such as: monitoring and promoting the health of computer science including research, human resources, and infrastructure; initiating studies involving computer science and national economic strength; responding to requests from government for expert input; fostering interactions between computer science and other areas of science and technology; and providing a forum for the exchange of information related to computer science, computer technology, and telecommunications.